Geochronologic and Related Studies, Southern and Central NewEngland

Recent determinations of diffusion rates of cations in several common minerals allow a mineral dating method to resolve between protracted slow cooling and discrete later tectonic events. This project will study Paleozoic metamorphism and deformation in the southern and central New England Appalachians. It will obtain Rb-Sr, Sm-Nd and U-Pb isotopic data on co-existing minerals in high grade metaigneous gneisses and amphibolites in order to determine the time of last recrystal- lization or initiation of cooling following high temperature metamorphism. The results of this study will allow features of middle Paleozoic and late Paleozoic shear zones to be dated, yielding a clearer understanding of major events in the northern Appalachians.